SGER: Hardware Fault Injection using Nano Technology

Modern IC's face many reliability problems and therefore online error detection mechanisms are necessary. Fault injection experiments are crucial in validating the correctness and in accessing the capability of these error handling or detecting designs. Prof. Lo is exploring the feasibility of using nanotechnology, specifically the nanofabrication of defects, in fault injection experiments. The faults are injected onto the silicon surfaces of commercial microprocessors/microcontrollers and FPGAs using the atomic force microscope (AFM)/scanning tunneling microscope (STM) with resolution down to hundreds of angstroms. The purpose is to create or at least emulate the effect of real-life run-time faults due to component aging, manufacture imperfections, electromigration and many others. Another goal of the project is to monitor the physical phenomena of the device under test. These include the power supply current level, thermal condition and electromagnetic activities. The proposed method is superior in that: (1) An accurate and repeatable fault injection experiment can be easily achieved; (2) The resolution of AFM/STM ranges from tens of micrometers to hundreds of angstroms; and (3) No radioactive material is involved